Acquisition of High-Energy Tunable Optical Parametric Amplifiers for Advanced Femtosecond Materials Research and Education

9975615
This award will provide partial support for the acquisition of a versatile ultrafast optical laser system that is centered around two broadly-tunable high-pulse-energy femtosecond optical parametric amplifiers (OPA) with nonlinear harmonic generation, pumped by a fsec Ti:Sapphire laser and regenerative laser amplifier. This system will be a unique and open research and student training facility on the Purdue University Campus. The broadly interdisciplinary group of researchers from across the Purdue Campus will use the facility for advanced research on semiconductor, metal and biomaterials. The research facility will be closely integrated with Purdue University teaching goals at the undergraduate and graduate student level to give students broad exposure to advanced technology to prepare them for diverse careers in science and engineering.

&&&
This equipment will significantly enhance the research and educational capability and infrastructure of the institution, its students, and its faculty.